Dissertation Research: Constructing Yucatec Maya Cultures: The Mayas of Piste

Tourism is a world-wide phenomenon that is affecting third world peoples, their views of themselves, and how they present themselves to outsiders, as well as how outsiders view them. This study will look at this process and see especially how anthropologists have affected local socio-economic organization and local knowledge about prehistoric and modern cultures. It will also analyze how anthropological knowledge, in turn, is incorporated into interactions between hosts and tourists. For this project the student will work in the Maya town of Piste, Mexico and will study the effect of anthropologist S.G. Morley's archaeological work at the site of Chichen-Itza and see how this has affected the development of tourism in Yucatan. This study will contribute to an understanding of how anthropology is a social institution that has historical effects on the peoples it studies. This study has the potential to influence the way anthropology is done in the future by showing the unexpected side-effects and spin offs of the basic research endeavor.